Social Psychophysiology Research Program: Phase II

An increasing number of social psychologists are interested in investigating the physiological underpinnings of social behavior. Many of these researchers have had little experience with the sophisticated technology now being used in psychophysiological measurement. The major objective of this award is to advance the technical and theoretical foundation for research in the Social Sciences by providing a forum for advanced study and research in psychophysiological principles and techniques. The centerpiece of the program is an annual 28- day conference in the Iowa Social Psychophysiological Laboratory. During this time, the participants are engaged in the intensive study of: (1) the general theoretical issues involved in inferring psychological processes and states from physiological data; (2) the neurophysiological foundations of psychophysiology; 3) psychophysiological concepts and principles; (4) psychophysiological recording procedures; (5) general issues in the analyses of psychophysiological data; and (6) computers and instrumentation. Participants also update limited hands-on experience in recording electromyographic, electroencepholographic, electrodermal, cardiovascular electrooculargraphic, and respiratory responses. Finally, the program involves overcoming traditional obstacles to the application of psychophysiological principles and techniques in the social sciences. These efforts include the development and distribution of algorithms, software, recording procedures and instrumentation. The Principal Investigator has an established reputation as a superb researcher, extremely knowledgeable about psychophysiological theory and techniques and dedicated to sharing his knowledge and experience with others. He has assembled an outstanding staff to aid him in this endeavor.